CyberAI SFS: Building the Future Cybersecurity and AI Workforce

The CyberAI Scholarship for Service (SFS) program at the Michigan Technological University will provide scholarships, mentoring, career development, and placement support for scholars pursuing cybersecurity AI education. Scholars will develop the knowledge and skills needed to secure government, defense, and public-sector systems against increasingly complex cyber threats. By expanding the pipeline of well-prepared cybersecurity professionals, the project will support the education and training of a future workforce equipped to serve national defense and advancement of emerging technologies.

The project will support an integrated education, research, and workforce development model for students focused on cybersecurity and AI. Scholars will complete bachelor’s and master’s degrees that combine foundations in computer science, cybersecurity, AI, and data science. The program will use faculty mentoring, cohort-based activities, hands-on laboratories, applied research experiences, and professional development to support student success. Scholars will receive structured support for federal hiring processes, required internships, and post-graduate placement in qualifying positions. The project will contribute to a practical model for preparing cybersecurity and AI professionals for public-sector employment.

This project is supported by the CyberAICorps Scholarship for Service (CyberAI SFS) program which funds proposals to increase national capacity to educate and train professionals in Artificial Intelligence (AI) or Cybersecurity, and to support their placement and retention in the CyberAI mission of government organizations. The Scholarship Track funds academic institutions to award scholarships to students in exchange for their government service. The Innovation Track seeks transformative education proposals in the areas of AI, cybersecurity, or the integration of AI and cybersecurity.